RCMS: Research Careers for Minority Scholars in Earth System Science

9550715 Hawk Clark Atlanta University (CAU) will continue to build its comprehensive academic, research, and outreach program in Earth System Science (EES) through the establishment of a Research Careers for Minority Scholars (RCMS) Program in ESS. Earth System Science is the study of the earth and its component parts, which include the atmosphere, maritime regions, biological and hydrologic cycles, and geographic features, their interaction and evolution. The proposed program is an outgrowth of an existing RCMS program in Geosciences. The overall objective of the ESS program at CAU is to expose a large segment of the University's faculty and students to the interdisciplinary nature of the study of the interactions among the earth, its atmosphere and oceans while simultaneously increasing the number of minority students pursuing graduate degrees and careers in this and related areas. This project will support the following activities: (1) Establishment of sixteen undergraduate student research positions, eight in year one, four in year two, four in year three; (2) Summer research experiences for pre-sophomore ESS students; and (3) Student travel to national laboratories and conferences.